Computer-Interfaced Respirometer For Biological Sciences Laboratory

The aim of this project is to significantly enhance the ability to teach about respiration and metabolism in a diversity of biology courses. The acquisition of a Micro-Oxymax computer- interfaced respirometer provides the sensitivity for measuring changes in CO2 as well as oxygen and allows animals to be monitored for extended periods of time without stress. By interfacing with the university computing systems the collected data is available to students in a variety of courses for additional analysis. The project has an impact on students in several courses, allowing them to take direct, accurate measurements of key metabolic processes, to investigate the influence of various environmental factors on their magnitude, and to develop "doable" experimental ideas of their own.